Signalling in Plant Development Conference, September 27th-October 1, 1995 New York

9507339 Sundaresan The meeting on Signalling in Plant Development will be held at the Cold Spring Harbor laboratory from September 27 to October 1, 1995. It will be an open international meeting that will be devoted to recent advances and discoveries at the interface of two swiftly progressing fields - signal transduction mechanisms in plants, and the molecular biology of plant development. The development of a higher plant is regulated by a multitude of signals from within and without, that evoke both generalized and specific biological responses, and elucidation of the mechanisms of signalling is vital to understanding plant development. The emphasis of the forthcoming meeting is on interpreting and integrating new finding on the mechanisms of signal transduction within the context of plant development. The need for such a meeting is evidenced by the rapid advances during the last few years, e.g. cloning of regulators of photomorphogenesis, elucidation of the roles of calcium and cGMP in the developmental response to light, cloning of regulators of pollen-stigma interactions, cloning of genes that control flowering time, and cloning of genes involved in pathogen recognition. The meeting will allow presentation of recent results and methodologies in these different topics within a common framework, in an atmosphere of face to face contact. In keeping with the traditional format of Cold Spring Harbor meetings, the oral presentations will be primarily on new unpublished finding. and particular encouragement will be given to presentations by younger scientists. The areas to be covered by the meeting are: 1) Germination, 2) Photomorphogenesis, 3) Vegetative growth, 4) Flowering, 5) Pollination and fertilization, 5) Fruit development and embryogenesis, 6) Altered developmental programs- environmental effectors and 7) Altered developmental programs- biological effectors. ***